Support for 5th US Combustion Meeting

Award Number: CBET - 0714409
Title: Support for 5th US Combustion Meeting
Principal Investigator: Buckley, Steven G.
Institution: University of California-San Diego

This award will provide partial support for the Fifth Joint Meeting of the US Sections of the Combustion Institute, renamed the "5th US Combustion Meeting," which will be hosted by the University of California San Diego at the Town and Country Hotel in San Diego, CA, from 25-28 March 2007. In 1999, the three United States sections of the international Combustion Institute - Eastern States, Central States, and Western States - initiated a biennial series of national meetings on combustion. These meetings have been highly successful, based on the attendance and the number of presentations. Consequently, this biennial event has gained a prominent stature and become the premier national conference in fundamental and applied combustion.

The NSF funds will be targeted to provide partial travel support to graduate students and young researchers who make podium or poster presentations. The information about the availability of travel support to graduate students will be provided in all the meeting announcements and on appropriate websites. In addition, an announcement about the availability of travel support will be mailed to members of the Combustion Institute.